A Career Development Plan for Research and Education Based on Joining of Intermetallic Compounds

9623599 Gale This CAREER program focuses on research with closely linked educational activities related to joining of intermetallic compounds to conventional nickel-base superalloys. Transient liquid phase (TLP) bonding is examined as a technique for bonding structural intermetallics since it is tolerant of limited low temperature ductility and stable oxide formation often exhibited by such alloy systems. The research aims to elucidate the mechanisms controlling processing structure property relationships in nickel aluminide/superalloy joints and thereby demonstrate routes for improved microstructural control. The formulation of suitable process modeling tools are a vital part of the research. A difficulty often encountered by students is establishing interconnections in terms of shared and linked concepts between different aspects of science. The educational part of the program develops an educational module on intermetallic alloy to superalloy joining that illustrates key aspects of materials science with appropriate emphasis on microstructural development, materials processing, mechanical properties, kinetics and thermodynamics. This module will include multimedia teaching resources and inclass demonstrations. %%% The field of intermetallic compounds constitutes a major research activity both within the US and worldwide. Suitable methodologies are needed for initial fabrication and post service repair. The joining of intermetallics to conventional materials, such as superalloys, is particularly important as intermetallics are likely to be used locally within engineering systems composed predominantly of such materials. ***